Introducing Parallelism into Scripting Languages through Generalized Data Distributions and Library Preprocessing

The goal of this project is to explore compilation technologies for high-levelscripting languages that make it possible to run the generated code on leading-edge parallel com-puters without sacri .cing application performance,programming clarity,or programming system responsiveness.The intellectual merit of the proposed research lies in research on the trade-o .sbetween di .erent compilation times .language generation time versus application compilation orinterpretation time .to achieve higher optimization levels without making compile times unaccept-ably long.